Experimental Study of Adaptation to the Edge of Chaos and Critical Scaling in the Self-adjusting Peroxidase-Oxidase Reaction

0140179
Hubler

One aspect of biocomplexity is the ability of biota to self-adjust to their
environment. Previous studies of adaptive behavior have shown that
adaptive systems will evolve over time to states that are weakly chaotic, a
condition known as the edge of chaos. These studies typically use a
genetic algorithm (computer-based evolution) to implement adaptation. It
is conjectured that most self-adjusting dynamical systems that initially
have chaotic behavior will also adapt toward the edge of chaos. A model
for self-adjusting dynamical systems is introduced which treats the control
parameters as slowly varying, rather than constant. The dynamics of these
parameters is assumed to be governed by some low-pass filtered feedback
from the dynamical variables of the system. Under the influence of noise,
at least in numerical models, the probability of chaotic breakout shows a
universal scaling with the duration of the breakouts.

Applications of the model to biochemical oscillators as the simplest
possible adaptive system relevent to environmental dynamics will be
investigated. A high degree of interdisciplinarity is required, as the
research involves expertise in dynamical systems, plant biology,
instrumental measurements, cybernetics, enzymology, chemistry, and physics.
The system is chosen to be "biocomplex," yet simple enough that meaningful
measurements can be made and quantitative models can be evaluated.

We intend to experimentally demonstrate adaptation using the
peroxidase-oxidase oscillator as an example. This system is known to
exhibit non-linear, complex, and even chaotic behavior. We will explore if
the in situ behavior of this enzyme provides the first experimental
evidence for adaptation to the edge of chaos in a naturally occurring
system. Detailed chemical models are available to guide our experiments.
We will experimentally implement low-pass filtered feedback from the
dynamical variables to the control parameters through:
1. a computer based probe-actuator system, and
2. the comparatively slow response of the metabolism of a thin section
of horseradish root tissues suspended in a reactor, and check for
adaptation to the edge of chaos, and critical scaling of chaotic
outbreaks of chemical oscillations.

Outreach activities to local secondary schools will be incorporated into
our existing collaborations with high school science teachers. If our
initial experiments on plant peroxidases show the anticipated complexity,
we will then explore the related complexity in the behavior of peroxidases
and oxidases in human neutrophils, cells associated with anti-bacterial
activity and response to systemic afronts.